Analytical and Experimental Study of Crack-Interface Interactions in Continuously Inhomogeneous Solids (CIM's)

9712831 Lambros Modeling of interphase regions found both in nature (animal and plant tissue and bone) and artificially manufactured materials (composite fiber/matrix region) has been performed using the concept of Continuously Nonhomogeneous Medium (CNM). The present project provides measurements for the experimental validation of the CNM concept. Using full-field optical techniques, stationary crack behavior in specific interphase regions containing CNMs is investigated. The observed stress distributions and measured stress intensity factors are compared with existing theoretical models. An analytical investigation to determine the sensitivity of existing models to key nonhomogeneity parameters is also conducted. Experimental and theoretical investigation of quasi-static crack propagation in CNMs is also performed. ***